Removal and Selective Recovery of Heavy Metal Ions From Industrial Wastewaters

This research effort seeks to examine the use of biomass for removing toxic metal ions from industrial waste waters. The toxic-waste-treatment problem is a significant one and is generally recognized to be a major task for research in the coming years. The use of biomass for this purpose may prove advantageous because of the affinity of algal biomass to a wide variety of toxic metal ions.